CAREER: Development of Biomedical X-Ray Phase-Contrast Tomography

0546113
Anastasio
The proposal seeks to develop several new approaches to the processing and reconstruction of phase-contrast X-ray tomography using coherent X-ray sources. It looks forward to the future availability of different sorts of coherent X-ray detection schemes, including multi-spectral single-detector configurations, cone-beam spherical-wave sources, and truncated geometries. Simulation methods and some verification using a synchrotron beamline are also included.